Collaborative Research: FRG: Hyperbolic Geometry and Jones Polynomials

The works of Thurston and Jones revolutionized low dimensional
topology. Thurston established the ubiquity of hyperbolic structure in
low dimensions. Jones' work, via such physical notions as quantum
groups and path integrals, led to vast families of topological
invariants associated with diagrammatic descriptions of topological
objects. The investigators have striking experimental evidence for a
direct link between these disparate approaches. Establishing such a
link is of fundamental importance to low dimensional topology. This
proposal aims to establish this link, with particular focus on the
generalized volume conjecture, which relates the most important
geometric and quantum invariants: the hyperbolic volume and
Chern-Simons invariant, and the colored Jones polynomials of a
knot. The theory of L2-invariants provides a combinatorial framework
to study hyperbolic volume. Deforming this construction along the
curve of representations given by the A-polynomial involves the
twisted Alexander polynomial and the colored Jones polynomials. Tree
entropy of graphs provides the bridge between L2-torsion and colored
Jones polynomials.

The volume conjecture relates classical geometric invariants of
three-dimensional spaces with topological invariants motivated by
ideas from quantum physics. This conjecture originated in the theory
of quantum gravity, which cannot yet be verified experimentally. The
mathematically rigorous verification sought by this project of this
and related conjectures will support the internal consistency of
quantum gravity. Unifying quantum and geometric invariants is also of
intrinsic mathematical importance, which will yield important new
insights in other fields. Computer programs to study geometric
invariants and tabulation of knots and their invariants are
essential tools for this research. Undergraduate and graduate students
involved in this project will be exposed to sophisticated mathematics
and computer tools.